Dissertation Research: A Systematic and Evolutionary Study of Corallorhiza and Allies (Orchidaceae)

Dr. Jeffrey Doyle of Cornell University will supervise a graduate student, John Freudenstein, in a morphological and biochemical study of the orchid genus Corallorhiza. About 12 species have been recognized in the genus, but because the plants are small, leafless herbs which are superficially similar, their taxonomy is problematic. One primary objective of the study is to re-evaluate the species of Corallorhiza using new multivariate statistical techniques applied to old as well as new characters. These characters will come from a thorough study of the genus with regard to shape and form of their flowers and stems, their internal construction (anatomy), and the mutational changes which can be measured by comparing their DNA (especially chloroplast DNA). In addition to indicating the species boundaries within the genus, this information will be used to address other questions, such as the evolutionary relationships of Corallorhiza species. DNA information, analyzed by computer-aided cladistic methods, will be especially important here. Additional questions in the group include the evolution of self-pollination, possible parallel trends among species in mycotrophy, and evolution of the chloroplast DNA in a leafless group of plants relative to that in leafy plants. Such information will be of general use in further orchid research.